New Directions in Geometric Algorithm Design

Special Abstract for 0306283 (Dobkin and Chazelle, Princeton U,

Title: New Directions in Geometric Algorithm Design

This project pursues a number of objectives

that have been at the heart of important

new developments in computational geometry.

Chief among them is the issue of

algorithm design for large datasets:

how to deal with high dimensionality,

uncertainty; how to optimize functions

approximately in sublinear time; how to simplify and

visualize complex data;

how to customize data structures to speed up search.

The effort is to involve a mix of theoretical

and experimental investigations, with targeted

applications to surface simplification,

3D shape matching, massive dataset visualization,

and protein structure prediction.

The theoretical issues involve

combinatorial geometry, algorithm design

and basic complexity theory.

This effort is aimed at deriving new

computational methods for solving

problems of a geometric or biological nature

that have resisted past investigations

because of one two reasons: either the input

data is too massive to be processed directly

and it can only be "sampled" cleverly or

the number of variables is itself so high

that standard methods suffer from an exponential blowup

in the time it takes to run them. New

dimension reduction techniques are needed

to resolve this bottleneck.

etric Algorithm Design

This project pursues a number of objectives

that have been at the heart of important

new developments in computational geometry.

Chief among them is the issue of

algorithm design for large datasets:

how to deal with high dimensionality,

uncertainty; how to optimize functions

approximately in sublinear time; how to simplify and

visualize complex data;

how to customize data structures to speed up search.

The effort is to involve a mix of theoretical

and experimental investigations, with targeted

applications to surface simplification,

3D shape matching, massive dataset visualization,

and protein structure prediction.

The theoretical issues involve

combinatorial geometry, algorithm design

and basic complexity theory.

This effort is aimed at deriving new

computational methods for solving

problems of a geometric or biological nature

that have resisted past investigations

because of one two reasons: either the input

data is too massive to be processed directly

and it can only be "sampled" cleverly or

the number of variables is itself so high

that standard methods suffer from an exponential blowup

in the time it takes to run them. New

dimension reduction techniques are needed

to resolve this bottleneck.

The proposal is a careful outline of research work that may greatly aid in geometric data